Countable Convergence in Compact Spaces

The PI investigates independence results in the study of countable
convergence questions in the class of compact spaces. Some of the
questions remain unresolved even in the presence of the Proper Forcing
Axiom. The sequential order of a space is a natural ordinal invariant
that measures the complexity of a sequential space; the question of
whether there can be a finite or countable bound on this invariant for
compact spaces has only been resolved under CH. We will also study
continuous maps on the remainder of the Stone-Cech compactification of
the integers which are finite-to-one. We will try to determine if such
maps have to be "somewhere trivial" and whether the range space will be
homeomorphic to the domain. This question has been fully resolved under
PFA but not, for example, under MA. Two other questions about the
remainder of N under PFA: can it be covered by nowhere dense P-sets and
can there be non-trivial copies of the remainder?

When one formalizes the limiting process of an infinite sequence of
steps one is naturally lead to the notion of topological space. Points
in physical space can be analyzed using the notion of a converging
sequence, but just as mathematics has a need for a much broader
understanding of points (e.g. functions or processes themselves lying in
a space of like processes), so too has the need for a broader
understanding of limit and topological space been developed to handle
convergence in the more general settings. The investigation into the
nature of generalized convergence, connections between conditions that
may imply the existence of (the much easier to understand and apply)
classical convergent sequences, and the behavior of the convergence
structure under deformations is on-going and productive. These notions
are very sensitive to the foundational axioms of mathematics and the
questions serve as both a testbed for foundational study and a generator
of new development. One of the most famously indeterminate questions of
mathematics, the continuum hypothesis (the "size" of the real number
line) is intimately connected to these questions of convergence.